Graphical Paradigms for Teaching and Using Statistics

9354678 Cook Students first learn statistical thinking through simple graphics like bar charts and histograms. At the college level a graphical approach to statistics is less often used. This is so in part because good graphics have only just become available on computers. Possibly a more important reason is that while numerical methods have a firm mathematical footing, graphical statistics have consisted primarily of methods of graphing, without any accompanying theory. In this project, a theoretically sound graphical approach to statistics is being developed. Lessons concentrate on regression modelling or curve fitting as well as other statistical ideas which can be used in courses at all levels. What differentiates this project from others on graphics is the development of a unified theory to make graphs more comprehensible and much more useful in the analysis phase of a study.